REU: Chemical, Optical, and Condensed Matter Physics at Georgia Tech

This action will continue the support for the REU Site at Georgia Tech. Approximately fifteen undergraduates will spend the summer participating in a broad research program in chemical, optical, and condensed matter physics. Participation by women and minority students will be particularly encouraged.